Postdoctoral Fellowship: MSPRF: Geometry-Informed Dynamic Measure Transport for Stochastic Inverse Problems

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines such as Artificial Intelligence and Quantum Information Science, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Aimee Maurais is “Geometry-Informed Dynamic Measure Transport for Stochastic Inverse Problems”. The host institution for the fellowship is Cornell University and the sponsoring scientist is Yunan Yang.